Laboratory Upgrade for Undergraduate Radio Astronomy Techniques Course

The project enables a major upgrade to the laboratory component of the course Techniques of Radio Astronomy taken by junior and senior undergraduates in the Five College Astronomy Department. This effort is centered around the 21-cm horn antenna constructed for this laboratory some years ago; the present project allows the addition of a high resolution autocorrelation spectrometer for use in spectroscopic observations of hydrogen in the Milky Way. This instrument has replaced a low resolution filter spectrometer that had been on loan to this laboratory, but which was far from ideal and is no longer available. The autocorrelator is based on a 80386- personal computer, which takes the data and performs Fourier Transforms to obtain the spectral power distribution, as well as basic tasks such as calculating the direction in which the (manually operated) telescope is to be pointed. The computer also runs the spectral line reduction software package developed at the Five College Radio Astronomy Observatory. After the period during which data are taken, the computer and software are available to students on an unscheduled basis, with several sets of laboratory exercises to be completed. These get students to go through the process of reducing their data after taking it. Examples include determination of peak velocities at different Galactic longitudes to study Galactic rotation, and measurement of the basic form of the Galactic disk. These projects greatly enhance the laboratory component of the course and thus the value of the course as a whole.